CAREER: Biologically-Inspired Actuation and Control of Robotic Above-Knee Prostheses

Shen
1351520

Overview: The research in this CAREER proposal addresses two fundamental issues in the emerging powered above-knee (AK) prosthetics area -- Actuation and Control -- with innovative biologically-inspired robotic approaches. The objective is to provide sufficient power output, long duration of operation, and reliable volitional control capability for powered AK prostheses to enable their use in the amputee users- daily life. By addressing these fundamental issues, this project will lay a solid foundation for the PI's long-term research goal of creating powered prosthetic devices with comparable functionality and appearance as biological limbs, so that amputee patients can enjoy life like healthy persons. The educational activities in this proposal aim to generate a synergistic impact with a series of activities under a common theme of "Using Robotics to Help Persons with Disabilities!" These activities will build a basis for the PI's long-term education goal of creating a comprehensive robotics education program that integrates education and research on multiple levels (graduate, undergraduate, and K-12), with the emphasis on recruiting, retaining, and mentoring students with disabilities.
Intellectual Merit: Despite recent technological advances, the majority of state-of-the-art AK prostheses are still unpowered. Biomechanical studies show that these devices are unable to restore the normal locomotive functions. The research in this project aims at bringing powered AK prostheses to reality with a novel chemo-fluidic sleeve muscle actuation system, which provides a significant advantage relative to the traditional battery-DC motor system. The actuator in this new system, sleeve muscle actuator, provides a superior power density compared with DC motor (at least 10 times higher). It also enables the use of an innovative design philosophy - integrating joint actuator with load bearing structure -- and thus can potentially generate a highly compact AK prosthesis suitable for daily use. The new system also incorporates a new energy-storing medium, namely monopropellant, to provide ample energy supply for the AK prosthesis. As a unique class of liquid fuel, monopropellant releases energy through catalytic reaction (instead of combustion). The safe reaction products, oxygen and water steam, can be used directly as the high-pressure working fluid to drive the sleeve muscle actuator. As such, monopropellant can form the basis of a highly compact pneumatic supply to support the desired long duration of operation for powered AK prostheses. The new actuation system will be complemented with a novel prosthesis control approach, namely fault-tolerant EMG direct control. This new approach enables volitional (i.e., according-to-the-intent) control of the prosthesis through the neural interface provided by electromyography (EMG). Furthermore, to address the reliability issue of EMG interface, a fault-tolerant control structure will be created, which reconfigures the controller in the event of EMG failure. As such, this novel approach is anticipated to allow the user to control the prosthesis according to his or her intention while avoiding the hazards from a complete controller failure, such as falling and the resulting injuries.
Broader Impacts: Currently, there are more than 400,000 AK amputees in the U.S., and this number is expected to double by 2050. The proposed research has the potential to benefit society by significantly improving these amputees' mobility and quality of life. Furthermore, based on the PI's ongoing educational efforts, new education activities will be conducted in this project by integrating research into education. These activities include: (1) Establish a comprehensive plan for the recruitment, retention, and mentoring of students with disabilities; (2) Contribute to graduate education in both engineering and prosthetics & orthotics with the efforts towards bridging the gap between biomedical engineering research and clinical practice; (3) Promote undergraduate research with a multi-year research project aiming at developing a robotic arm exhibit for a science museum; (4) Outreach into K-12 education system to promote science and engineering with robotics-themed activities, collaborating with the first STEAM-accredited elementary school in the world.